Information Technology Across Careers

The Education Development Center is continuing the development of a common approach to the teaching and learning of information technology (IT) applications across the sixteen career clusters defined by the U. S. Department of Education. The first phase begun under NSF award 0101703 undertook work in six clusters: 1) Transportation/Distribution/Logistics; 2) Manufacturing; 3) Education/Training; 4) Science/Technology/Engineering/Mathematics; 5) Health; 6) Agriculture/Food/Natural Resources. Phase two is developing materials for the following four clusters: 1) Law/Public Safety/Security; 2) Architecture/Construction; 3) Arts/Audio-Visual/Communication Technology; 4) Hospitality/Tourism. A set of four web-based IT Applications Resource Guides to enhance instruction in community and technical college programs is also being developed.